PPD: 1994 Conference on Science Education for Persons with Disabilities

Stefanich 9355783 This project will conduct a conference on effective science education for students with disabilities. The conference will be held for two days just prior to the 1994 National Science Teachers Association Annual Convention in Anaheim, California. The conference will include invited papers, panels, and working groups to evaluate current practices and future directions in science education for students with disabilities. The major purpose of the conference is to educate science teacher educators, science teachers, and professionals providing services and/or equipment to persons with disabilities as to what resources and strategies are effective in providing science education for persons with disabilities. Recommendations for improved practice will be shared and responded to by participants. Information in areas of career concerns, teacher education, methods, materials/programs, dissemination, evaluation and assessment, and educational organizations and agencies will be compiled and prepared into a document for conference participants. A publication will be developed following the conference, and become available to interested individuals and agencies at a nominal cost. ***